Some Computational Developments for Applications of Piecewise Quadratic Programs

Piecewise quadratic programming is an important model in optimization. This model has many potential applications in theory and practice including dual quadratic programming, stochastic quadratic programming with simple resource, and parametric quadratic programming. Recently the author has started a systematic study on this topic and has implemented a direct algorithm for linearly constrained convex separable piecewise quadratic programming (PQP). This research will continue the investigation on PQP in the following areas: direct and indirect algorithms, both exact and approximate; network related PQP problems; PQP as an approximation to general nonlinear separable programming with linear constraints; and applications of PQP in parallel computation. The PI has developed expertise through his doctoral research that qualifies him well for the project. Northwestern provides an excellent environment for this type of research. An award is highly recommended.